RUI: Morphogenesis of the Murein Sacculus of Escherichia coli

This proposal involves use of small angle neutron scattering techniques to allow for measurements of the bacterial cell wall (murein sacculus) undere conditions where it (at least) approaches its native state of being fully hydrated. Determinations of the thickness of the E. coli cell wall at lateral vs. polar cell regions, the thickness of the wall at stationary vs. exponential growth phase, and the number of murein layers should lead to needed insights as to just how such cells increase the size of their sacculi, and thus enlarge our understanding of basic aspects of growth and morphogenesis of these and other bacteria. //